2006 Multiphoton Processes Gordon Conference

This award provides funding to support student and postdoc travel to participate in the 2006 Multiphoton Processes Gordon Conference. The conference is being held during the week of June 11-16, 2006, and will involve a broad program that touches upon a number of research activities of interest to investigators and students supported through the AMOP program. Some of these include advances in ultrafast laser spectroscopy, attosecond physics and attosecond pulse generation, coherent control of molecular dynamics, and electron dynamics in atoms and molecules exposed to intense laser fields. Students will participate through presentation of posters and through formal and informal interactions with leading scientists in the various fields.